Nondestructive Evaluation of Thick Composite Materials Using A Parametric Transmitting Array

The purpose of this Research Planning Grant for Women Scientists and Engineers is to perform a preliminary investigation of the possibility of developing a procedure for detecting flaw geometries in thick composite materials using nonlinear ultrasonic methods in conjunction with a parametric transmitting array.